Immigrant Minorities, Education and Ethnicity

This project will allow a cultural anthropologist to study the school success of minority children of Iranian ancestry in the San Jose, California school system. Hypotheses to be tested include the effects on school performance of socio-economic class as opposed to family support and educational values, the reason for migrating and opportunities for returning, and involvement in a local ethnic subculture. Methods involve participant observation, structured and survey interviewing, and analysis of school records. The PI is an experienced researcher who has done research in Iran several times from 1969 through 1978. This research is important because the causes of school success among minority and immigrant populations is a central problem in U.S. Society. Studies such as this which shed light on school performance can increase our understanding of how some minorities and minority individuals can be successful in mainstream schools, and help us understand the relationship between the development of ethnic subcultures and the educational experiences of immigrants.